Site Summer Workshops on Theoretical Economics being held at Stanford University, Stanford, CA, Summer of 1993-1995

For the past two decades, Stanford has conducted a highly successful summer workshop that has served as a gathering place for extended research interactions among economic theorists. The intellectual and physical environment, extended program format, experienced staff, and support from the University and the Hoover Institution have combined to make the Stanford program uniquely successful over many years. The program has traditionally provided an important forum for younger economists to present and receive comments on their work. For the summer of 1993, a program with the following three themes is proposed: Environmental Economics, Financial Institutions and Imperfections, and Epistemic Foundations of Game Theory. Each topic will be centered on a workshop and will also include a series of presentations on the same theme. For the subsequent summers, topics to be concentrated on include: Implementation and Design of Economic Mechanisms, Applications of Game Theory to Oligopoly, and Discontinuous Changes Induced by Inflation.